Alaska Native Science Commission

ABSTRACT OPP-95-27788 LARSON This proposal is for initial support of an Alaska Native Science Commission (ANSC). The concept was developed following a series of planning meetings organized by the Alaska Federation of Natives in concert with the University of Alaska Anchorage and other scientific and indigenous groups. The mission of the ANSC is to facilitate the integration of indigenous knowledge into science; influence priorities in research; mandate participation of Alaska Natives at all levels of science; provide mechanisms for the feedback of results; promote science to young people; encourage Native people to enter science; and to ensure that Native people share in the economic benefits derived from their intellectual property.